Quantum Properties of Systems at Ultralow Temperatures

Superfluid helium-3 has been identified as a p-wave pairing system, possessing an isotropic energy gap reminiscent of a superconductor. The theoretical picture remains clouded, however. It is proposed to measure the pair-breaking energy, using ultrasound at a temperature well below the phase transition, and from that obtain a value for the energy gap. The entire pressure range from saturation vapor pressure to melting pressure will be investigated. Other experiments are planned on heavy-fermion systems and one- dimensional Heisenberg antiferromagnets. This research aims to clarify some of the puzzles surrounding the quantum-mechanical properties of bulk matter at temperatures close to absolute zero.